Digital Government: Database Middleware for Distributed Ontologies in State and Federal Family & Social Services

EIA-9983249
Elamagarmid, Ahmed K
Purdue University

Digital Government: Database Middleware for Distributed Ontologies in State and Federal Family and Social Services

One of the key problems in government at all levels is data interoperability. The problem arises from the distributed nature of government agencies, the lack of top down leadership, and the remnants of "silo" architectures seen in legacy mainframe agency information systems. The explosive growth of the web has exposed this inability to integrate data and the consequent inability to ask sensible questions which cross agency lines; e.g., "what benefits can I expect from various government agencies when I retire." Moving this distributed data to one place is not an option. Rather, technology must be developed to access the data where it is held, using common data definitions, or ontologies and an interface.

This grant will support work on this problem in the areas of query infrastructure, middleware for the web, and dynamic inter-ontology support. The government collaborators are the Indiana Family and Social Services Administration, the Indiana Dept. of Workforce Development, and the US Dept. of Health and Human Services.